Support for the SEDI Symposium

This award provides partial support for the forthcoming Symposium on "Reversals, Secular Variation and Dynamo Theory", a symposium organized by the US Committee of SEDI (Study of the Earth's Deep Interior). The Symposium will take place at St. John's college, Santa Fe from August 6 through August 10, 1990. Support is principally to help defray the travel expenses of some key participants from abroad who would otherwise be unable to attend the Symposium.